Multimedia Power Systems Control and Simulation Labware

The aim of the project is to develop a multimedia, PC-based, power system simulator to interface, via real time data acquisition and control, to programmable logic controllers. A variety of operations, ranging from simple DC motor control to complex synchronous generator modelling can be simulated. The goal of the multimedia presentation is to augment Junior- level power systems labs with simulation-based exercises that "connect" the laboratory to the real world. The simulation exercises provide videotaped illustrations of an actual power plant, the operation and description of sensors, and a detailed description of the control objectives.